Workshop on Automated Worm/DDos Eradication System Organized Information Exchange Workshop (AWESOME), 8/8-11/05, Bethlehem, PA

Lehigh University has been awarded Special Project funds to organize and hold a workshop on network security entitled, Automated Worm/DDoS Eradication System Organized Information Exchange Workshop (AWESOME), in conjunction with a Cisco bootcamp on network security that Prof Chuah is hosting at Lehigh University from August 8-11, 2005. The objectives of the workshop are:

1. To attract more women and underrepresented minority students, especially those in the Tri-State Area, to network security research;
2. To minimize the learning curve of participants who are interested in network security research by providing them with tutorials on relevant topics and some hands-on experience with an NSF-funded research testbed;
3. To help participants expand their peer support network with a community of researchers who have similar objectives and experiences.